Incision History of the Middle Indus River from (U-Th)/He Dating of Apatite

0106806
Zeitler
Large rivers are an important element in the geodynamic - evolution of orogens, as they define base level for drainage and removal of considerable material. However, at spatial scales consistent with crustal tectonics, it is difficult to decipher the incision histories of major rivers because the erosion they facilitate removes most of the direct evidence. Helium dating of apatite has the potential to provide timing information of river incision in orogenic areas. This project will examine the Indus River incision history as it crosses the Nanga Parbat metamorphic massif in Pakistan. Results will be useful in testing theories of tectonics and topography of the Himalaya.